Matrix Isolation Studies of Reactive Intermediates: Formation by Excimer Laser Irradiation and/or Twin Jet Deposition

Professor Bruce Ault is supported by a grant from The Physical Chemistry Program to investigate intermediates of chemical reactions which have been trapped in a matrix of solid Argon. Some of these studies may further our understanding of the chemical vapor deposition process used for making semiconductor devices. Ault will exploit the unique capabilities of matrix isolation to study several classes of reactive intermediates. A significant portion of the effort will be directed toward the development of excimer laser multiphoton ionization as a photochemical means of generating reactive intermediates, including radical fragments, novel rearrangement products, and ions. Two important classes of molecular complexes will also be characterized after formation through twin jet deposition. The first class consists of complexes between crown ethers and certain cations and neutral acids. The second class consists of intermediate complexes of group III and V elements which are thought to play a major role in the chemical vapor deposition of semiconductor films. Spectroscopic characterization of these complexes will lead to a better understanding of molecular interactions and the role of intermediate complexes in chemical processes.